Computer Aided Instruction for Life Sciences Students in theLaboratory

Western Nevada Community College, a rural school, is providing its students with state-of-the-art instruments in laboratory instruction. These instruments use computer interfaces and software that allows for detailed visualization of tissue, cell, and molecular samples from biological sources. Physiological equipment gives the students the opportunity to experiment with physiological variables such as respiration and cardiac activity. The UV-Visible spectrophotometer allows for the analysis of biological materials such as plant pigment extracts, and is interfaced with a computer for graphic portrayal. The project has a great impact on students who will enter the work force in fields such as nursing, agriculture, medicine, and nutrition in which this expertise will be important. The college is contributing 104% of the award.